Minority Graduate Research - Honorable Mention: Christine Calderazzo

This special award will give Christine Calderazzo additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.